Mathematical Sciences: The Pierce-Birkhoff Conjecture and Hilbert's 17th Problem

This research will focus on two problems in real algebraic geometry, namely the Pierce-Birkhoff conjecture of 1956 and Delzell's conjecture. The first would show that every continuous piecewise-polynomial function from real n-space into the reals is a pointwise supremum of infima of finitely many polynomials. The second would improve Delzell's continuous solution of Hilbert's 17th problem on sums of squares. This research is in the general area of real algebraic geometry. This is an area which is of basic importance to pure mathematics. In addition, this field has an interface with robotics and consequently, will have a positive impact on theoretical robotics, science and engineering.